Millimeter-Wave Reconfigurable Antenna Arrays Using Monolithic MEMS Technology

Millimeter-Wave Reconfigurable Antenna Arrays Using Monolithic MEMS Technology
Abstract: Reconfigurable antenna arrays can dramatically enhance versatility of the RF front-ends in radars
and transceiver systems, and present an interesting problem at millimeter-wave (MMW) frequencies. The
purpose of this project is to utilize radio-frequency micro-electromechanical system (RF-MEMS) technology
to form highly integrated, monolithic, reconfigurable antenna array architectures. Two different aspects of
the problem will be addressed under the proposed program: 1) design of reconfigurable radiating structures
that lend themselves to surface micro-machining fabrication techniques, and 2) fabrication of monolithic
MEMS arrays and technological issues involving wafer-scale integration. A programmable aperture lens-array
is proposed based on MEMS-enabled antenna-filter-antenna (AFA) elements. AFA's are three-layer planar
structures composed of transmit and receive antennas and bandpass filters. The complete array, including
MEMS switches, is fabricated using a stack of two similar size quartz or glass wafers, and in a monolithic
fashion. MEMS devices are sandwiched between the two bonded substrate wafers, resulting in a selfpackaged
structure.
Intellectual Merit: High-performance, low-cost beam-steering is of prime importance for wide-spread
deployment of commercial MMW systems. MEMS technology enables novel integrated antenna array
concepts, which can respond to this need. The findings of this project are expected to advance the technical
knowledge and understanding in the areas of antenna arrays and applied electromagnetics, as well as RFMEMS
design and technology.
Broader Impact: An unconventional research effort of this type promotes the research culture and
technological competence among graduate students. Development of the necessary measurement capabilities
creates opportunities for the participation of undergraduate students through summer internships and senior
design projects. ASU is the main vehicle of higher education for a large number of students from underrepresented
ethnic backgrounds through the state of Arizona. The proposed program furthers involvement
of these students in advanced technology research, and is a practical step towards making engineering
education accessible to minorities.